Mathematical Problems in Compressible Fluid Flow

9986658
Hoff

This is a proposal to study various questions relating to the existence,
stability, regularity, and large-time behavior of solutions of certain partial
differential equations arising in the theory of viscous, compressible fluid
flow. Previous work on the existence of discontinuous solutions of the
Navier-Stokes equations in three space dimensions will be extended to
finite regions, requiring new insight into the production of compressible
vorticity at boundaries. A rigorous analysis of the propagation of
singularities and the regularity of discontinuity surfaces in solutions of
these equations will be given. A continuous-dependence theory will be
developed, sufficient to provide a framework in which numerical
procedures for approximating solutions can be studied. The dimension of
the attractor for the Navier-Stokes equations in one space dimension will
be estimated in terms of the size of the applied force and scale-invariants
of the system. Finally, previous work on the multidimensional stability of
large-amplitude viscous shocks for scalar conservation laws will be
extended to the more applicable case of systems.

The proposer will study various mathematical questions concerning
important models of compressible fluids and materials. These models
arise in a broad range of applications, including supersonic flight, dynamic
meteorology, semiconductor theory, and the design and use of viscoelastic
materials. While the main goal in constructing these models is to achieve
a predictive capability, they are far too complicated to be "solved" in any
explicit sense. On the other hand, adequate approximate solutions can
frequently be generated by computer methods. The intelligent design of
such methods depends crucially, however, on a rigorous understanding of
why solutions do exist, in what sense, and in what ways they are sensitive
to noise in the data. The primary goal of this project is therefore to provide
such a rigorous mathematical analysis for these models.